Diciphering the Ocean's Influence on East African Climate using Multicentury, Multivariate Coral Records

9632287 Dunbar This project will analyze oxygen and carbon stable isotopes and trace elements (U, Ba) in corals from the Kenyan coast over the last few centuries. The data will provide a long-term continous record of decade- to century-scale variability in SST and river runoff (=rainfall) for a poorly-known tropical region, and will contribute to understanding linkages between regional monsoon variations and larger-scale features such as ENSO.